Predictability of Climatic and Hydrologic Systems: Insights from Nonlinear Dynamics

The purpose of this award is to provide travel support for graduate students and a limited number of invited speakers to participate in a special session on nonlinear dynamics and predictability in climate and hydrology. The session is being held as part of the American Geophysical Union's Spring Meeting. The role of nonlinear dynamical processes in geophysical systems has been recognized as one of the key issues which must be understood if we are to improve, or determine the limits of, predictability of these complex and coupled systems. Participants in this session will not only review current knowledge, but also will identify future directions for research.